200th American Chemical Society Symposium, Geochemistry Division "Progress in Marine Chemistry"

The time is ripe for a review of the progress in marine chemistry. Ths is particularly true with the advent of global change issues. Such issues like the exchange of greenhoue gases with ocean or availability of trace micro nutrients in limiting primary productivity depend fundamentally on the physical chemistry of sea water. The American Chemical Society has long been a champion of the bright of marine chemistry as a new field of applied chemistry. At its 200th annual meeting, the ACS has chosen to recognize marine chemistry by holding a symposium on Progress in Marine Chemistry. The symposium will be sponsored by the Geochemistry Division of ACS and will be held August 27 and 28 in Washington, DC. The Geochemistry Division will also take the opportunity of honoring the contribution of Professor Edward D. Goldberg to marine chemistry during his long and productive career.